Research Experience for Undergraduates in Microelectronics

This Research Experiences for Undergraduates program addresses the need to expose undergraduate students to the tools and techniques used in the interdisciplinary, and highly dynamic field of microelectronics at Florida International University. A sample project of a superconducting magnometer will be developed. The undergraduates will be exposed to a variety of disciplines, including material science, mechanics, thermal science and electrical and electronic engineering. Multilevel structures of superconducting materials will be fabricated using tape cast films. The electromagnetic characteristics will be investigated by students at Florida A&M University. The entire packaging of the magnetometer ensuring stable thermal performance and structural rigidity, will also be developed. This comprehensive research experience will entail broad exposure to methods of literature search, problem definition and formulation in these areas, technical report writing, laboratory set-ups, culminating in specific problem application. The combination of a historically black university (Florida A&M) and a minority institution (Florida International) is a special, unique feature of this program.